Investigation and Construction of Statistical Designs for Multifactorial Experiments

----------------------------------------------------------------------- Proposal Number: DMS 9803596 PI: Samad Hedayat Institution: University of Illinois at Chicago Project: Investigation and Construction of Statistical Designs for Multifactorial Experiments Abstract: The investigator studies statistical problems in the area of design and analyses of scientific and industrial experiments in which the outcomes are influenced by multiple factors and noise. The goal will be to identify the best factor combinations while minimizing and measuring the noise. The research effort is mainly concentrated in the construction of designs capable of investigating location and dispersion effects, compound orthogonal arrays with high strength, g-designs as core sub-designs ,and orthogonal arrays of strength t plus. The success of any serious scientific study depends on the way it is designed and the related data being collected and analyzed. Noise is the biggest nuisance while the goal is to relate the outcomes to the levels of the factors influencing the study. This is true in almost all social, engineering, environmental, and medical studies. It is costly and indeed unwise to eliminate noise entirely. Indeed in many studies it will be enough if one knows the source and the intensity of noise. Under the latter condition it is possible to explore how the surrounding factors are impacting the outcomes. The investigator explores all these interconnected topics and identifies new cost- and time-effective and improved statistical designs capable of handling these highly complicated scientific issues.